Auto Validating Methods in Dynamical Systems

Tucker
0107242
The investigator studies the effects of errors imposed by
numerical computations carried out in most applied environments
(e.g. commercial computers). He focuses on rigorous control of
errors in the numerical solution of systems of ordinary
differential equations, particularly chaotic dynamical systems.
The goal is to provide accurate estimates of the errors of the
actual calculations, and to introduce an accurate means of
dealing with rounding/truncation errors.
Auto-validating methods for the numerical solution of
mathematical problems or of mathematical models of science and
engineering problems, especially chaotic dynamical systems, is
becoming increasingly important. Rigorous error estimates,
valuable for any computational model, are especially important in
chaotic systems, which arise in modeling weather, neural
networks, and so on. The investigator